Research Initiation: Hypercube Algorithms for Large-Scale Spectral Simulation

The objective of this research is to use hypercube parallel processors for large-scale spectral simulation using the Navier-Stokes equations from fluid dynamics as a test bed. Algorithms will be developed for a number of spectral methods, codes will be written for the NCUBE computer, efficiencies will be determined, and a number of supercomputer-class research problems will be examined as example, e.g. instability, transition and turbulence. The effectiveness of spectral algorithms on current hypercubes will be assessed, and future directions and requirements of large-scale spectral computation will be determined.